On the Nonlinear Elastostatic Problems of Bending, Torsion, Radial Expansion/Contraction, and Eversion for Compressible Isotropic Materials

This SMALL GRANT for EXPEDITED RESEARCH is made in order to expedite the study of a new concept in exact solutions of five problems in nonlinear elasticity. Universal solutions will be attempted by the patching together of other solutions.